CAREER Development in Geomodeling: Seeing and Creating Connections in Earth Science

Modeling of coupled continental tectonics, mantle dynamics, and surface
processes will be undertaken to explore surface deformation and deeper
mantle flow during continental collision. Surface erosion will be
incorporated into the models to explore the interaction between tectonics
and atmospheric processes. Model predictions will be compared to data from
collisional settings to provide a better understanding of continental
collision. The links between continental growth and the Earth's thermal
evolution will also be explored. A combination of theory, numerical
simulations, and lab experiments will be used to provide insight into
coupled planetary cooling and continental growth. Geochemical data will
provide constraints on continental growth. The methodologies developed to
model the interaction between conducting continents and the convecting
mantle will also be used to address hydrothermal convection below
insulating cap rock and the cooling history of magma chambers within host
rock. The PI's modeling across earth science sub-fields will provide unity
between his teaching and research. Lecture demonstrations, i.e., models
designed for education, can convey general foundational ideas that students
then link to approach a range of earth science problems. This will allow
students in introductory classes to see that scientific ideas are not isolated
bits of information. The broader impact is that a portion of the student
population that will not go into science will have a clearer view of what
science is. Demonstrations will also be used in a reverse mode. A workshop
will be developed where advanced students will build demonstrations and simple
experiments of their own design to convey key ideas from their primary earth
science field. In presenting their work to each other they will see how many
key concepts do not care about artificial sub-field boundaries. They will
see connections and be better prepared to make new ones. The space will also
house a scientific visualization studio where students will work on effective
visual communication of scientific ideas. The workspace/studio will be
available to K-12 educator colleagues in the Houston area.